Algebraic hierarchical matrix preconditioners for two- and three-dimensional saddle point problems

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This project deals with the development, analysis and implementation
of novel techniques for the solution of large, sparse linear systems
of equations of saddle point type. Despite much recent progress,
the solution of large systems of equations remains one of the main
bottlenecks in many numerical simulations. Applications include
fluid dynamics, magnetohydrodynamics, image processing, and many more.
This project deals with the further development of the
technique of hierarchical (H-)matrices. H-matrices
provide an efficient technique for computations
involving approximations to fully populated matrices.
The standard construction of an H-matrix is based
on the underlying geometry of the application. Similar to the generalization
of geometric to algebraic multigrid methods, the PI proposes to
develop an algorithm for the algebraic construction of H-matrix
preconditioners for saddle point problems. Sequences of three-dimensional
Oseen problems that result in the numerical solution of the Navier-Stokes
equations will serve as the major application of the novel techniques.
An additional topic to be considered in this project is
the application of H-techniques in only recently developed
Kronecker product preconditioners. The techniques of this proposal
have a high potential to lead to robust and scalable blackbox solvers
for large, linear systems arising in the simulation of scientific and
technical problems of increasing size and complexity.

H-matrices have first been introduced in 1998 and
since then entered into a wide range of applications.
The approach of H-matrices is of significant importance
within its own field of numerical analysis and also with respect to
practical large-scale computing challenges that scientists are
currently facing. Examples for applications include models for
magnetic fusion, accelerator design, electrochemical processes
or the growth of ceramic nanostructures.
Progress in the areas targeted in this proposal will have a
positive impact on science and engineering by allowing for faster
and more accurate computer simulations.